Development of a New Method of Calorimetry

9601938 Jannone A calorimetry apparatus to accurately determine the vapor quality of a condensable, unsuperheated substance will be purchased. A working model for steam turbined will be developed, and will be used for teaching of undergraduate students and research. ***